PYI: Low complexity source coding techniques for high quality digital image compression.

This project investigates new source coding techniques with specific applications to high-quality digital image compression. Vector Quantization based methods for low-complexity, near-optimal encoding will be studied and developed for such applications as universal adaptive quantization, progressive transmission, color image compression, and multi-level facsimile and graphics compression. Special emphasis will be placed on image transmission algorithms for packet network and multiprocessor environments. Parallel processing and neural network techniques will be studied for time-efficient and cost effective solutions to the high complexity problem of vector quantization.